Workshop on Doctoral Education in the iSchools

As scholarly digital content has proliferated over the past decade, the field of library and information science has had to undergo radical curriculuum changes to deal with primary library tasks designed for print and analog media. The major educational and research changes related to digital information have led to a number of leading institutions to form interdisciplinary "iSchools" and begin a dialogue to adapt collectively to the new forms of information and access practices. This proposal is for a workshop to gather selected iSchool administrators and faculty focusing on pedagogical issues to discuss and reach common agreement on primary curriculum goals. This workshop is designed to present and analyze individual existing approaches and construct implementation, evaluation and dissemination plans to guide future activities.